Density Functional Theories of Freezing and Interfaces

Density Functional Theories of Freezing and Interfaces: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. The goal of this research project is to apply theoretical methods developed independently by the two groups to the study of the crystallization of liquids on a microscopic scale. The purpose is to understand the nature of the phase diagrams that result for different types of liquids, liquid crystals, and plastic crystals, and to develop new theories for the rates of nucleation and crystal growth for crystal from the melt. The project is under the direction of Professor David W. Oxtoby, James Franck Institute and Department of Chemistry, The University of Chicago, Chicago, IL 60637, U.S.A., and Professor Robert Evans, H.H. Wills Physics Laboratory, University of Bristol, Royal Fort, Tyndall Avenue, Bristol, England. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.